Communication, Production, Research in the Classroom through Internet Access

This award is made under the innovative technology connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64, which covers K-12 education institutions (including vocational technical schools), public libraries and museums. It provides partial support for 24 months to connect seven elementary, one middle and one high school and an administrative office to the Internet using cable television technology. Partners with the City Schools of Decatur are the MediaOne, Inc cable system; Apple Computer; and the Center for Education Integrating Science, Mathematics and Computing (CEISMC) of the Georgia Institute of Technology.